Explaining Global Diversity Conference at the University of Florida, Gainesville, FL, February 25- March 2, 1997

This project involves a planning conference to combine archaeologists, cultural and physical anthropologists to discuss a research agenda for the Human Genome Diversity The results of this conference will stimulate research across the sub-disciplines of anthropology, and serve to integrate the field, as well as advance our research capacity in the broad area of studying the social, cultural and genetic significance of human diversity